Structural Homology of Plant Enzymes Degrading S-SubstitutedCysteines

A number of S-substituted cysteines are major constituents of the non-protein amino acid pool in species of genera which are widely-separated taxonomically. Enzymes are present which act as C-S lyases and by a beta-elimination reaction yield, in many cases, the characteristic odors and flavors of those plants used as food. In addition the garlic and onion enzymes are of particular interest because the products produced also appear to have marked effects in a number of medical applications. There is one C-S lyase which is present in all autotrophic plants. This is cystathionine-beta-lyase (EC 4.4.1.8) which is required in the biosynthetic pathway of methionine. The other C-S lyases studied to date do not utilize cystathionine as a substrate or do so very poorly. This proposal clarifies the evolutionary relationships among various C-S lyases that have been purified to homogeneity by determining the structural homologies which exist in the protein molecules. Typical examples of each type of lyase have been obtained in a homogeneous state and by the use of peptide mapping and immunological cross-reactions, the homologous regions, if any, are being determined. The active site peptide should be distinguished from the others because of the pyridoxal- 5'-phosphate bound as the secondary amine after reduction. Studying the conservation of protein structure among proteins with similar functions in different organisms has been one approach to elucidate evolutionary origins and relationships. This project examines the degree of relatedness of a group of enzymes limited to a few widely-divergent plant families whose substrates are S-substituted cysteines, which are common secondary metabolites in these families. Determining the evolutionary relationship between these enzymes is important both agriculturally and medically. There is considerable commercial interest in these enzymes in several species such as garlic, onion and broccoli because of their relationship to the characteristic flavors and odors associated with these vegetables. Furthermore, the products resulting from these enzymes have potential medical applications and have aroused pharmaceutical interest.